CC-NIE Network Infrastructure: Implementation of a Science DMZ at San Diego State University to Facilitate High-Performance Data Transfer for Scientific Applications

The CC-NIE Network Infrastructure project at San Diego State University
(SDSU) is constructing and deploying a Science DMZ to support data
intensive science and accommodate specific end-to-end dataflow scenarios
between SDSU and other universities and national laboratories. The
design of the Science DMZ follows the vision and architecture laid out
by the Energy Sciences Network (ESnet). Cisco Nexus 7000 and 2000
series switches are deployed, along with a 10Gbps connection to the
CalREN-HP network with exclusive use by the Science DMZ. Researchers at
SDSU are hosting delay-sensitive applications and datasets on Lustre
parallel file systems directly attached to the Nexus switches. These
applications and datasets support research projects in the numerical
simulation of earthquake rupture and wave propagation, coastal ocean
modeling, pulse detonation engines, vortex rings in Bose-Einstein
condensates, and large-scale data for proteomics, gene promoter
bioinformatics, and microbial metagenomics. The project will directly
impact the faculty and students who encompass the Computational Science
Research Center which draws participation from all science and
engineering departments at SDSU. The Science DMZ provides researchers
with the capability to rapidly exchange large datasets and deploy
Web-based science applications that are accessible through a dedicated
network that is separate from, and therefore not impacted by, general
Internet traffic generated by the campus population. The DMZ will
promote remote usage of computing resources at SDSU, cultivate
development of collaborative tools for sharing data with the broader
scientific community, establish new research partnerships, and foster
new mentorship opportunities between faculty and students engaged in
computational science.